Nitrogen Assimilation in Coastal Waters Via the Amorphous Detritus Food Web

This proposal is for a Research Planning Grant through the Research Opportunities for Women program. Dr. D'Avanzo proposes to study the process by which dissolved organic material from decomposing estuarine plants is reaggregated into organic particles and then utilized in the food webs of estuaries by fishes, worms and other detritus-eating animals. Dr. D'Avanzo has done some preliminary work on this area of marine ecology in collaboration with scientists at the Boston University Marine Program (Woods Hole) and she will be developing an expanded research proposal to continue these studies. She is presently a professor at a small, primarily undergraduate institution - Hampshire College, therefore this award should facilitate both the participation of this young woman in oceanographic research and better undergraduate training in this field.